DISSERTATION RESEARCH: Evolution of Delayed Plumage Maturation in the Red-backed Fairy-wren: Behavioral, Social and Genetic Perspectives

Red-backed fairy-wrens are small, passerine birds that successfully breed
for at least one year in dull brown plumage before obtaining adult breeding
plumage. This delayed acquisition of adult breeding plumage by
reproductively capable individuals, known as delayed plumage maturation
(DPM), is widespread in birds. However, much remains to be learned about
the evolutionary costs and benefits of DPM. The proposed research tests
hypotheses for the evolution of DPM via behavioral observation in the
field, manipulative experiments, controlled mate choice trials, and
molecular genetic analyses. In doing so, this project also tests the
effects of social status on male plumage color. In addition Pruett-Jones
and Karubian will quantify male reproductive success in order to examine
the selective forces involved in the evolution of male ornamentation along
with determining the role of female choice in this process.

This project furthers our understanding of how selection affects the
evolution of physical traits (like bright coloration) and social behavior
while providing important information on a species whose social biology and
ecology are virtually unknown.